MRI: Acquisition of SEM/EDX for Materials and Device Research

ABSTRACT CTS-9871042 Susan N. Houde-Walter, Dennis G. Hall, Roman Sobolewski University of Rochester Title: Acquisition of SEM/EDX for Materials and Device Research The College Microscopy Lab at the University of Rochester will purchase a Philips Environmental Scanning Electron Microscope with EDX analysis system. The laboratory serves eight academic departments, a program in Biomedical Engineering, the Center for Optics Manufacturing, and the Laboratory for Laser Energetics. Projects include circular grating lasers, nanoparticle-enhanced photodetection, glass micro-optics, genetics of plant reproductive development, laser fusion targets, magneto rheological finishing, and ceramics composites CVD. Cost-sharing of over 38% is provided by the university.